Integration of Object-Oriented Paradigm into Introductory and Intermediate Computer Science

The object-oriented paradigm (OOP) is having a significant effect on software development and use. Through this project, Lawrence University will integrate OOP into a core of four introductory and intermediate computer science offerings taken by the math/computer science majors and other students who choose to supplement their major with a strong background in computer science. A key to this integration is switching from Pascal to C++ as the programming language used in these courses. By providing students early exposure to object- oriented programming, instructing them how to make the most effective use of programming tools, exposing them to issues in abstraction and portability, and teaching them how to use already developed code libraries, the project will insure that the students' growth in computer science is in step with the most recent trends in the discipline. To assist in achieving these goals, through this project the institution will acquire workstations which support a rich C++ environment for developing and using class libraries.